CITY SCIENCE -- A Systemic Plan for Elementary Science in San Francisco

9453958 Walter: In this Local Systemic Change Through Teacher Enhancement Project, the University of California, San Francisco (UCSF), proposes a project in partnership with the San Francisco Unified School District (SFUSD), whose purpose is to enable all of the city's elementary schools to accomplish effective, site-based science education reform. UCSF's City Science program will provide an intensive hands-on science program for 400 SFUSD teachers who have taught less than seven years and a less intensive program for 600 more experienced teachers in order to broaden the base of teachers with hands-on science in a cooperative learning environment. It will also provide new opportunities for a subset of the 100 teachers who are current City Science participants to expand their capacity as science teachers while serving to further develop in their role as leaders. They will support specific aspects of the district-wide science education reform and mentor new leadership that will sustain the reform process in their schools.